NSF Young Investigator

9357017 Cyert This is an NSF Young Investigator Award to Dr. Martha S. Cyert. The overall objective of her research is to elucidate the physiological functions and substrates of the phosphoprotein phosphatase, calcineurin in the budding yeast, Saccharomyces cerevisciae. A major focus of her research will be to examine the role and mechanism of action of calcineurin in the process of adaptation to pheromone and recovery from pheromone-induced growth arrest. She will also examine the possible involvement of calcineurin in regulation of the cell cycle. Her experimental approaches include techniques of molecular genetics and biochemistry. ***